Toward Practical Parallel Programming

This project seeks to take a major step toward increased practicality of parallel programming for genuine applications. Three areas will be studied: oLanguage design: A new multiparadigm language will be designed, weaving together the best parallel programming features of functional, logic, and objected oriented languages: producer-consumer AND- parallelism (functional); goal-driven OR-parallelism (logic), and message-based loose coupling (object oriented languages). oImplementation techniques: A coherent implementation strategy for this composite language will be developed, based on techniques for compiling each language component to conventional machine code. These techniques will include strictness analysis (functional) , Warren Abstract Machine Code (logical), and encapsulated imperative code (object oriented languages). The combined method will be demonstrated on both a uniprocessor workstation and on an 18-node multiprocessor system. oProgrammer pragmatics: The practical merits of this approach will be evaluated through an application study involving successive levels of sophistication in digital circuit simulation. In support of this demonstration, user interface issues will be addressed through the construction of a prototype programming environment, operating compatibly in both uni-and multiprocessor modes. Parallel programming is rapidly being transformed from an esoteric specialty to a subject of fundamental importance to all programers. Among the reasons for this transformation are (i) the introduction of concurrency control constructs into general purpose languages (e.g. tasks in ADA), (ii) increasing interest in naturally parallel algorithms (e.g. constraint satisfaction methods), and (iii) the recent availability of commercial multiprocessor offering dramatically increased computing power per unit cost.